Industry/University Cooperative Research Center Planning Grant Proposal: Power Systems Engineering Research Center (PSerc)

ABSTRACT
EEC-9908357
MELIOPOULOS

This is a planning grant to hold a planning meeting at Georgia Institute of Technology (GIT) to become a research site of the multi-university Industry/University Cooperative Research Center for Power Systems Engineering. The GIT research center would be added to those of Cornell University, The University of California, Berkeley, Washington State University and Howard University.

The research projects proposed for addition to the Center's established research agenda are:

1. University/Industry/Government Workshop on Power System Electromagnetic Influence, Power Quality and Saftey

2. Power System Electromagetic Modeling and Design

3. Comprehensive Power System Reliability Assessment

4. Optical-Based Sensors for Power Systems Applications

5. Comprehensive Electromagnetic Modeling of Power System Components for Lighting and Shielding Studies

6. Multiresolution Time-Domain Techniques (MRTD.